REU: Multiple Autonomous Mobile Robots for Search and Rescue Applications

9732601 Murphy, Robin Core, Karen Colorado School of Mines REU: Multiple Autonomous Robots for Search and Rescue Applications This Research Experience for Undergraduates (REU) Site project supports eight students per year in programs carried out during the summers, for two years. The students will work on projects involving coordination and control of multiple heterogeneous robots for urban search and rescue applications. Activities include development of technical skills, development of interdisciplinary problem solving skills, and on professional and personal development. The project targets women and minority students at bot CSM and at traditional minority institutions. The participants work both individually and in groups. The results will include construction and programming of eight small robots operating under central control and then modification and programming of two existing robots for the rapid deployment of a small inspection robot by the larger robot at the scene of a disaster, and subsequent intelligent control and observation by the larger robot.